Quantum Operator Approaches to Multidimensional Reaction Dynamics

Steven Schwartz is supported by a grant from the Theoretical and Computational Chemistry Program to perform theoretical research in the application of evolution operators to condensed phase systems consisting of a few quantum degrees of freedom in contact with a solvent bath. This model is useful for theoretical treatments of chemical reactions in the presence of solvent. Schwartz has developed a propagator expansion resummation technique which shows significant promise in terms of improved accuracy and range of applicability for treating many dimensional chemical reactions. He plans to apply this theory to the elucidation of the mechanism of rate processes in multiple pulse ligand photolysis experiments on hemoglobin. A great deal of progress has been made in the theoretical treatment of gas phase chemical reactions of systems consisting of relatively few atoms. Using state-of-the-art theoretical methods, it is now possible to explain a great deal of the experimental detail for such systems. However, the large majority of reactions which are of interest to chemists occur in condensed phase systems in the presence of solvent. The theoretical models for treating such complex systems are in a much earlier stage of development. Schwartz is developing new theoretical approaches for dealing with solvated chemical systems undergoing chemical reactions where quantum effects may be important.